SGER: Experimental Study of Bed Load Sediment Sorting around Spur Dikes

0532691
Duan
This proposal is to apply for supplemental financial support to conduct a research
project funded by the National Center for Earth Surface Dynamics (NCED) at the
University of Minnesota. NCED is a science and technology center funded by the
National Science Foundation. It was founded in August 2002 and is headquartered at the
St. Anthony Falls Laboratory at the University of Minnesota (UM).
The title of the funded project is Experimental Study of Bed Load Sediment
Sorting around Spur Dikes. The total amount awarded by NCED is $30,000, covering
the cost of one machinist, one instrument specialist, one junior technician, one graduate
student, and the travel. NCED will also provide the experimental flume and all
measurement equipment. Because NCED will not provide support for the PI's salary,
this proposal requests additional financial support to partially cover the PI's salary.
The funded project aims to conduct experimental study on hydrodynamic flow
field and bed load sediment sorting around spur dikes at the St. Anthony Falls Laboratory
at UM. The goals are to study the fundamental mechanism of bed load transport under the
complex turbulent flow field, investigate the effect of turbulent intensity on bed load
sediment sorting, and obtain an accurate dataset of flow field, scour hole geometry, and
bed material gradation for the verification of sediment transport models.
Broad Impacts:
The broad scientific impacts are four-fold: 1) This experimental study will
provide a dataset for the testing of fractional bed load transport models; 2) The dataset
can be used to analyze the impact of turbulent intensity on bed load sorting around spur
dikes; 3) The experimental dataset will also be used to verify a two-dimensional sediment
transport model developed by the P.I. at the Desert Research Institute (DRI); 4) The
experimental dataset will be available to the public through the internet.
The project will bridge the collaborations between the state of Nevada, an
EPSCoR state, and NCED. The collaborative research themes are 1) mechanisms of nonuniform
sediment transport in complex flow fields; 2) application of computational
hydrodynamic models in simulating earth surface dynamic processes; and 3) up-scaling
numerical models for the long-term simulation of morpho-dynamic processes.